U.S.-Brazil Cooperative Research: Chaos Theory Applied to Communication

9704249 Grebogi This U.S.-Brazil award will support a research collaboration between groups from the U.S. and Brazil to work on chaos theory applied to communication. The U.S. group consists of Drs. Celso Grebogi, Edward Ott and James A. Yorke of the University of Maryland; the Brazilian team consists of Professors Ricardo L. Viana and Epaminondas Rosa, Jr., of the Federal University of Parana, Brazil. These two groups propose to use fundamental properties of nonlinear dynamical systems to effectively reduce in-band noise, added to a message-bearing signal generated by a chaotic oscillator. The idea for this filtering procedure is based on a contractiveness property inherent in chaotic systems. The researchers also want to study methods to pace in a precise manner communication pulses resulting from a chaotic signal generator. This allows transmission of a signal containing a message, and then synchronization is used to recover the signal. The noise component is reduced as the chaotic signal propagates forward and backwards along stable and unstable directions respectively. ***